X-Ray Fluorescence Computed Tomography

9360146 Krieger Synchrotron Radiation Induced X-ray Fluorescence Computed Tomography will provide a means of non-destructively mapping the three dimensional distribution of trace elements within a specimen. Micron scale spatial resolution and PPM level sensitivity are potentially achievable. The characteristic fluorescent line radiation from a trace element must be detected against the background flux of scattered radiation and fluorescent radiation from more abundant elements. In phase I, Radiation Science will design a wavelength dispersive spectrometer that can be attached to fluorescence CT collimators within the confines of a beam hutch at a synchrotron light source. Radiation Science will also develop a practical implementation of an algorithm for absorption corrected reconstruction of fluorescence CT data. In phase II, Radiation Science will build a practical fluorescence CT system. *** v s t $ $ $ ( F / $ / 1 Courier Symbol & Arial 5 Courier New " h * * ~ C R:\WW20USER\ABSTRACT.DOT Denise Henry Denise Henry